Computer Science, Engineering, and Mathematics Scholarship Program

This program provides scholarships to low-income, academically talented students, many from underrepresented groups, to complete associates degrees in computer information systems, engineering, and mathematics. In addition to expanded and individualized academic support services, the project supports a wide range of activities for students, including internships, mentoring and research opportunities. There is significant involvement in the program by high schools, industry/government, and four-year colleges for recruitment, retention, and transfer of students.